Development of an Algorithm of In-Process Evaluation of ToolWear Effects on Surface Roughness Variations in Hard Turning

9612480 Jang The effects of tool wear on surface texture generation in diamond ultra-precision turning will be studied in order to establish the relationships between tool wear progression and the 3-D shape changes of the surface texture. This will be used as basis for development of control algorithms for on-line evaluation and display of the surface texture and development of an index for determining optimal tool changes as well as for development of tools to be implemented in the computer numeric controlled machining center. ***